Artificial Intelligence Support for Statistical Process Control of Discrete Manufacturing Processes

This research addresses the problem of how to achieve high quality products at minimum cost. Manufacturers understand that the way to achieve quality is by controlling the process so as to minimize defects rather than by rejecting parts in an inspection process. To do this, they need to apply statistical process control principles to the manufacturing process. A potential solution to this dilemma is to put the required knowledge into computer systems which assist shop floor personnel in performing statistical process control. The objective of the project is to extend prior research into real-time artificial intelligence systems to enable its application to this problem and to test the viability of this solution in actual manufacturing operations.